RII FEC: Data-Advanced Research and Education to Improve Weather Intelligence and Localized Climate Change Assessment and Resilience in Agriculture-based Communities

The central U.S. states of Kansas, Arkansas, Nebraska, and Iowa (collectively, the KANI states) experience some of the most dynamic weather patterns in the nation. This weather affects all walks of life in nearly all economic sectors, especially in agriculture-based communities. Furthermore, the scarcity of observation stations capable of delivering real-time soil and atmospheric data in KANI states make seasonal climate and weather prediction a challenge. This challenge co-exists with the high demand for workforce development and reliable weather intelligence to support an agriculture-based economy. To address these challenges, this project aims to design and implement the Data-Advanced Research and Education (DARE) infrastructure. The DARE infrastructure will be developed and maintained within an integrated workforce development framework, in which classroom teaching, research, extracurricular activities, community engagement and communication work in tandem to identify, assess, and, to some degree, mitigate the localized impacts of extreme weather events. The DARE project will contribute to a paradigm shift of readiness and infrastructure development strategy in these agriculture-based communities to embrace new technology for economic growth and adapt to future weather pattern changes. Its approach to integrate engineering solutions, citizen science, and societal impacts will expand both grassroots efforts and research opportunities to increase weather-related resilience at the local community level. The observation data collected in KANI can be used by the broader science community to assess seasonal and interannual changes in weather patterns and model predictions in rural and peri-rural areas in the United States.

This collaborative project will achieve data acquisition through a citizen science observation network to improve spatial coverage and real-time capacity for weather and soil observations. The network will deploy smart-and-connected low-cost sensors developed in house, enabling the real-time acquisition and delivery of weather and soil data across the KANI states. Data from the citizen science network will be used together with machine-learning method to improve heat index mapping, correct weather forecast bias in temperature and precipitation, downscale climate modeling data for subseasonal-to-seasonal (S2S) outlook; and improve efficiency of water use for farming and green space. Upon completion, this project is anticipated to leave a self-sustaining grass-root infrastructure that improves not only higher education and academic research but also participatory research and faculty career development. Through this project, the workforce in agriculture-based communities will not only be increased but also be better equipped with important skills with modern technologies (e.g., sensor design and manufacturing, Unmanned Aerial Vehicle (UAV) surveillance, and big data analysis).